A Proposal to create an Academic Network for Nunez CommunityCollege

Abstract Nunez Community College - S. Chalona Connection to NSFNET Proposal No. NCR-9415245 Nunez request support from NSF for connection of their campus networks to LaChen and from there to SURAnet. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Nunez Community College a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The College needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the schools to explore innovative educational resources.